Support for Students to Attend the 30th Annual DAMOP Meeting to be held in Atlanta, Georgia, March 20-26, 1999

9972920
Walker
This award provides support for student attendance at the Centennial Meeting of the American Physical Society (APS) in Atlanta, Georgia, 20-26 March, 1999. The Division of Atomic, Molecular, and Optical Physics (DAMOP) will hold its annual meeting as a component of the larger meeting. This award gives students the opportunity to participate in DAMOP sponsored events.